Mirror Symmetry and Geometry of Calabi-Yau Manifolds

Abstract for NSF proposal DMS-0103355:

In this project, the principal investigator investigates the geometry of
Calabi-Yau manifolds and mirror symmetry. First the PI plans to describe the
degeneration of Kahler-Einstein metrics on Calabi-Yau manifolds near the
large complex structure limit. Second the principal investigator studies
special Lagrangian submanifolds and deformed Hermitian-Yang-Mills bundles
on Calabi-Yau manifolds. Third, using Fourier transformation, Legendre transformation
and their variations, the principal investigator explains the mirror duality of complex
geometry and symplectic geometry between mirror manifolds.

The geometry of Calabi-Yau manifolds is an important subject in Mathematics,
and also in Physics. Originated in String theory, mirror symmetry conjecture
gives a duality transformation of this geometry. This project is towards
uncovering this amazing symmetry principle.